Planetary Aeronomy

95-30752 Hunten Dr. Hunten and two Co-Principal Investigators, Drs. Stephen W. Bougher and Ann L. Sprague, will carry out comparative studies of planetary atmospheres. This project is a continuation of earlier NSF-supported investigations. It also runs in parallel and complements, but does not duplicate, NASA-funded work in planetary aeronomy. The focus of this investigation will be the tenuous atmospheres of the Moon and Mercury, the atmospheres of Jupiter, Venus, Mars, and Pluto, and micro-meteoroid entries at Earth. Four topics will be addressed in particular: (1) The circulation and energy balance of planetary thermospheres, using a three- dimensional computer code developed at the National Center for Atmospheric Research. (2) The interaction of atoms of the Moon's and Mercury's tenuous atmospheres with those bodies' surfaces. (3) Completion of the analysis and interpretation of infrared spectra obtained with the Kuiper Airborne Observatory during the impact of Comet Shoemaker-Levy 9 on Jupiter in 1994. (4) Completion of a study of the preservation of micrometeoroids entering the Earth's atmosphere. ***